CISE Research Infrastructure: System Support for a Hierarchy of Distributed Applications

9624082 Fussell, Donald Lam, Simon University of Texas CISE Research Infrastructure: System Support for a Hierarchy of Distributed Applications This award provides infrastructure support for the researchers at the University of Texas at Austin to conduct the basic and experimental research necessary to address the problems that lie at the core of the emerging applications. Specifically, the research proposes projects at three levels: (1) core projects that will create an infrastructure for storing, accessing, and transporting large, heterogeneous information objects; (2) exploratory projects that will develop infrastructure which will facilitate the development of the core projects; and (3) realistic and ambitious applications from each of the following three classes. The first class is information retrieval applications, such as digital libraries. These applications will support browsing of large-scale, distributed databases of multimedia information. The second class of applications adds the requirement that the multimedia information be processed, not simply browsed. Finally, the third class of applications adds the requirement of real-time interactivity.